Research Equipment: Rheometer

It is proposed to purchase a rheometer for the purpose of research and research training in the dynamics of non-Newtonian fluids. More specifically, research will be performed on polymer melts, multiphase systems, and biomedical materials. This equipment will be used by six faculty members in Chemical Engineering and Mechanical Engineering Departments of CUNY City College, and one faculty member of Columbia University.